Gordon Research Conference on Electron Spectroscopy; Wolfeboro, New Hampshire; July 18-22, 1988

A Gordon Conference on Electron Spectroscopy will be held at the Brewster Academy in Wolfeboro, N.H. July 18-22, 1988. A range of modern techniques will be covered, including excitation sources, targets and detectors. Electron spectroscopy is used as a common thread to draw together and focus diverse approaches to frontier research topics. Interchanges will occur across the gas phase/condensed matter boundary and between basic and applied sciences. Invited speakers will stress the important interdisciplinary relationships.